RUI: Postprocessing High-Order Approximations of Discontinuous Functions - Algorithms and Software

In this project the PI develops algorithms and software to
facilitate the removal of Gibbs oscillations from the approximation
of discontinuous data by high order approximation methods such as
pseudospectral and radial basis function methods. Current
postprocessing techniques are somewhat successful in one dimension.
However, the most powerful methods require that the exact location
of the discontinuities (edges) be pinpointed and that function
dependent parameters be specified in each piecewise smooth region.
One focus of the work is in developing Edge Detection free (EDF)
postprocessing methods. The EDF methods are easily extended to
multiple dimensions and in some case to irregularly shaped domains.
The ultimate goal is a "black box" postprocessing algorithm. A
second focus of the work is in software development. A Matlab
toolbox which implements both classical and modern postprocessing
methods will be developed. The software will include a user friendly
graphical user interface facilitating use by the wider community.
The software will be used on benchmark problems to provide
illustration of the methods for both the specialist and
nonspecialist and to stimulate further research. The software is
designed to make it relatively easy for students to learn about the
methods and for researchers to apply them.

For the most accurate methods available to numerically approximate
the equations that govern natural phenomena, postprocessing methods
are vital. This is because many phenomena in nature are inherently
discontinuous, and numerical methods do not perform well when the
solution to the governing equations are discontinuous. The
discontinuities result in the methods producing solutions with
nonphysical oscillations that do not truly represent the phenomena
being modeled. Areas for which postprocessing methods are important
include: gas dynamics, weather forecasting, earthquake and tsunami
prediction, astrophysical modeling, multiphase fluid flow, the flow
of glaciers, the propagation of waves in elastic solids, the
separation of chemical species, aerodynamics, detonation waves,
acoustics, etc.